Acquisition of Research Infrastructure for Autonomous Robotics

9512448 Mataric The proposed project is to establish and support a new laboratory for adaptive behavior which will be equipped with mobile robots; and the computational, electronic, and mechanical equipment. The laboratory supports interdisciplinary research involving engineering and cognitive science in behavior and learning on autonomous agents. Studies to be carried in areas of directed and emergent programming, reinforcement learning, neural network learning, and evolutionary and genetic programming approaches. A set of related research projects in multi-agent and multi-robot will be initiated for dealing with a variety of agents, environments, and tasks; for selecting control strategies; and for simplifying the task of designing complex multi-agent systems. The laboratory will also be used for student projects in advanced computer science courses. ***